Improved Data Accesibility for Mobile Computers Through Predictive Methods

This project will develop methods to give mobile computers timely access to changing data through improved data replication. When remote replicas of files stored on a mobile computer are updated, the system must balance data staleness against using scarce and expensive network bandwidth to fetch the new version. This research will investigate methods to automatically predict when files replicated on a portable computer should be reconcilied with remote replicas, which files are of most importance to reconcile, and which remote replica is likely to have the freshest data. The project will build on the success of the Seer predictive file hoarding system. The predictive methods developed will rely on information already kept for other purposes, plus a modest amount of newly gathered information. Simulation, analytic modeling, and measurement will be used to determine suitable methods. The project will produce a working prototype system. This research will improve the quality of data for portable computer users. It will be applicable to other types of data, such as database fragments or cached Web pages.